Propagation of Poor Power Quality Phenomena in an Distribution Feeder

Electronic power switching devices are known to create power line disturbances through the generation of harmonics, subharmonics, fractional harmonics and other non-periodic voltage and current spikes. Most voltage and current irregularities which result in a departure from the sinusoidal steady-state, 60 Hz wave form cause detrimental effects to the end users' equipment as well as to distribution system operation and safety components. A method for modeling the propagation and attenuation of harmonic energy in the distriubtion system is the focal point of this research project. Experiments using a scaled-down network will confirm the accuracy and versatility of the modeling techniques. Understanding the phenomenon of harmonic current and voltage behavior will play an important role in developing algorithms for the decoupling of the harmonics from the fundamental power system frequency. This research will foster an open-minded attitude towards new solid- state switching technologies, but at the same time will make sure that the present-day power quality of distribution feeders will not deteriorate.